Oceanographic Instrumentation 2000

0000630
Diebold
This award to Columbia University will provide instrumentation for ocean sciences research for use on R/V Ewing, a research vessel operated by the university's Lamont-Doherty Earth Observatory as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a set of eight kits for extended life for seismic sources (airguns), and one new high-speed sound source (GI gun). The shared-use instrumentation supported here will assist marine scientists conduct studies throughout the world ocean during 2000 and future years.
***